Learning-Dependent Neurogenesis

The growth of new brain cells after birth (postnatal neurogenesis)
occurs in several brain areas of vertebrates. Although previous studies
have shown that experience can influence brain growth, we do not know which
aspects of these experiences are involved with postnatal neurogenesis. It
is unclear whether experiences causes, or is caused by, postnatal
neurogenesis and whether the mechanisms that regulate this growth are
similar for different brain structures. The objective of this research
proposal is to test whether specific learning experiences can
differentially promote neurogenesis in different regions of the brain.
Snakes are ideal models for testing this hypothesis because they show
continuous neurogenesis throughout their brains and can learn spatial tasks
based on different types of cues. Cell proliferation and survival of brain
cells are predicted to occur differentially in brain areas associated with
spatial learning or chemosensory discrimination, depending on whether
snakes are trained to use spatial or chemosensory cues to solve a spatial
escape task, respectively. The brain areas that will be examined in snakes
are also found in mammals and are thought to function in similar ways.
The results of the proposed study will determine if postnatal
neurogenesis in specific brain structures is mediated by the use of
specific sensory cues to solve the same spatial problem. These results
should give insight into the functionality of postnatal neurogenesis and
help to form hypotheses about common mechanisms of spatial learning for
vertebrates. By comparing results from a variety of vertebrate species,
the long-term goal of this course of study is to understand the
relationship between behavioral plasticity and experience-dependent
neurogenesis. This information could have implications for understanding
the mechanisms which regulate brain growth and lead to new ways of
stimulating brain growth.